Incorporating High Quality Interventions into a Broader Strategy for Sustained Mathematics/Science Education Reform

This design study will help funded MSP project "pull it all together" and reflect on their designs in light of the challenges posed by large-scale reform and will help to ensure that the assistance the MSPs receive from multiple sources is more coherent. The PIs list key challenges for the MSPs (creating and sustaining a shared vision for reform; designing, implementing and evaluating reform interventions; and ensure that reforms become institutionalized. This design study will provide assistance to the individual sites to help them work effectively with these challenges. The outcome will be a web-based Handbook that incorporates the most current thinking approaches to meeting these challenges.